Mathematical Sciences: Unsteady and Steady State Singularly Perturbed Systems with Turning Points

We propose to study the asymptotic behavior of solutions of both unsteady and steady state singularly perturbed systems. Using asymptotic-numerical methods and singular perturbation theory, our results are expected to have more applications in fluid dynamics. The proposed research activities will enhance the quality our research.